Molecular Interactions Regulating Cell Signaling

9418318 Cafiso Proteins that can equilibrate between the cytosol and the membrane surface are critical to cell signaling, and charge density at the membrane interface plays a major role in determining this equilibrium. However, little is known at a molecular level regarding the membrane binding of these proteins, and it has not been possible to account for the electrostatic contributions to the binding using simple electrostatic theories. Neuromodulin and MARCKS (the Myristoylated Alanine Rich C-Kinase Substrate) are believed to play key roles as calmodulin buffers in the central nervous system. They bind calmodulin as well as membrane surfaces, and this binding is eliminated when they are phosphorylated by protein kinase C. A goal of this work is to obtain structural and kinetic information on a remarkable set of charged peptides derived from neuromodulin and MARCKS which exhibit all the important properties of their parent proteins. This information will be used to test more sophisticated electrostatic theories, to test the role of these proteins as calmodulin buffers, and to identify structural paradigms for proteins that interact in a purely electrostatic fashion with membrane surfaces. This work will make extensive use of site-directed spin-labeling and EPR spectroscopy. Another goal of the work is to investigate structural deformations that occur in calmodulin in the absence and presence of substrates. This work will make use of NMR and paramagnetic enhancements of nuclear relaxation which should provide distances weighted by a sixth root average. The modes of binding of peptides from MARCKS and neuromodulin which associate with calmodulin in a Ca++ dependent and Ca++ independent fashion, respectively, will also be examined. Proline appears with an unusually high frequency in the transmembrane segments of membrane proteins, and a final objective of this proposal will be to evaluate the role of proline in controlling the flexibility or deformability o f hydrophobic helices. %%% The control of cell growth and metabolism is an extremely important process for the proper functioning of all organisms, especially higher organisms such as plants and animals. In a number of cases, the pathways (or protein components) that mediate this control are well established. At a molecular level, however, little is known regarding the interactions between the macromolecules mediating the control of cell growth and metabolism. The objective of the work is to understand several fundamental molecular interactions that are critical for cell control. The understanding of this control at a molecular level is important for several reasons. First, it will provide insight into how biological systems have evolved and exploited physical properties of their molecular components. Second it will provide information on the specific interactions that mediate cell control. Although it is not a primary objective of the research, knowledge of such specific interactions will ultimately be important in designing new drugs to treat diseases that are associated with cell control such as viral infection and cancer. ***